Long Term Characterization of the Tidal Band Internal Wave Climate on the Central California Coast

0220566 Winant
Using 10 years of data from the Mineral Management Service's Santa Barbara Channel-Santa Maria Basin study, the PIs will characterize the local internal tide regime. The major objectives of the proposed study will be to identify the structure of tidal band motions in the central California region, calculate the energetics associated with the internal tide, and identify possible dissipation and mixing sites. Mean annual time series of the key internal tide properties will be developed and assessed in terms of the annual cycles of the local mean flow and stratification. The influence of intermittent events in the mean flow field, stratification and meteorology on the internal tide structure will be identified. Aberrations from the mean annual cycles corresponding to El Nino and other interannual induced changes in meteorology and ocean conditions will be identified. With the information generated by this study, it will be possible to quantitatively assess the effects of internal tides on water quality and resource management issues in the geographical region of study and in similar coastal shelf regions of the western United States.